Mathematical Sciences: Support of the Board on Mathematical Sciences

The Board of Mathematical Sciences provides a locus of activity at the National Research Council for issues affecting the mathematical sciences. It represents the mathematical sciences to the National Academy of Sciences, and provides it, government agencies, and the mathematical sciences community a forum for discussion of important issues. The Board itself consists of fifteen members representing the broad spectrum of mathematics. Operationally, the Board undertakes studies and produces reports and recommendations involving mathematical sciences, and in general plays an active, crucial role in policy formation and in the scientific life of the field.